Determining the Relation Between Molecular Structure and Macroscopic Heat Transport in Oriented and Stressed Polymers.

TECHNICAL SUMMARY:
An experimental study into the origins of anisotropic thermal conductivity of solid
polymers is proposed. In particular, a relationship between the molecular structure of
the polymer and the resulting macroscopic properties is sought. It has already been
established that (1) deformed, cross-linked elastomers exhibit an anisotropic thermal
conductivity tensor, k (2) the tensor k is linearly related to the extra stress tensor,
for the polymer in the same state, and (3) the constant of relation for these two
quantities exhibits a universal value of 0.03, independent of chemistry for the few
systems studied, when properly made dimensionless. In this work a set of experiments
has been designed that will distinguish between competing theories to describe these
observations. A non-invasive optical technique called Forced Rayleigh Light Scattering
to examine novel material states is used. Results will necessarily distinguish between
competing theories on the origins of the effect.
The results of the study will have broad impact on the transport modeling of advanced
materials containing plastic. While previous work showed how non-isothermal
modeling of liquids requires an additional complexity because of anisotropy, it also
suggested that this complexity could be easily modeled through use of a phenomenological
relation to stress. The current work, if successful, should determine if similar
principles apply to the solid polymer during cooling.
NON-TECHNICAL SUMMARY:
An experimental study into the origins of how heat flows differently in different
directions for solid polymers, such as plastic, is proposed. In particular, a relationship
between how the molecules are behaving and the resulting heat-flow properties
is sought. In this work a set of experiments has been designed that will distinguish
between competing theories to describe these observations using a non-invasive optical
technique called Forced Rayleigh Light Scattering. Results will necessarily distinguish
between competing theories on the origins of the effect.
The results of the study will have broad impact on the modeling of advanced materials
containing plastic. While previous work showed how temperature modeling of these
liquids requires an additional complexity, it also suggested that this complexity could
be easily modeled through use of a simple relation to stress which is typically calculated
already. The current work, if successful, should determine if similar principles
apply to the solid polymer during cooling.
Secondly, as part of the project, a display explaining the key optical technique employed
will be provided to the Holography Museum in Chicago. Visitors will learn that
holography is used to study material properties, and how the technique is employed.